Topics in Theoretical and Mathematical Physics

0099471
Schulman
The principal topics proposed for continued research arise from statistical mechanics. They include i) the possible relation of the thermodynamic arrow of time to large scale features of the universe and ii) a "master equation" method appropriate to nonequilibrium statistical mechanics which allows the PI to address questions of complexity in open systems. Other topics include path integrals, and deviations from exponential decay.